Role of Large-Scale, Extratropical Dynamics in Climate Change: A Stanstead Seminar; Lennoxville, Quebec; June 13-18, 1993

9221206 Gutowski This award provides travel support for graduate students and the invited speakers to allow their participation in a Stanstead Seminar devoted to the subject of the role of extratropical dynamics in maintaining the climate. The seminar will be held at Bishop's University in Quebec in June 1993. Among the topics to be covered are extratropical energy and water cycles, the role of eddy dynamics in zonally symmetric climate change, the contribution of local dynamics associated with phenomena such as storm tracks to non-zonal climate change, land-surface and tropical influences on extratropical transports and general circulation model predictability of the extratropical atmosphere handling of climate change. Funds for this award are being provided by three agencies - NOAA, DOE, and NSF. ***